Revolutionizing Friction Pile Design Through the Development of a Multi-Friction Sleeve Device for Direct In-situ Measurement of Interface Strength

***
9978630
Frost
A review of the technical design methods for a range of geotechnical
structures will confirm that, although many of these systems rely on the
interface strength between soil and man-made construction materials to
provide the necessary load resisting forces, rarely are measurements made
to directly determine the interface strength characteristics. Instead,
interface strength parameters are either estimated empirically from other
measures of strength by applying various correlation and/or correction
factors or they are interpreted through back-analysis of load tests. For
example, many prominent direct CPT pile design methods relate the measured
CPT tip resistance to the unit shaft capacity of the pile through one or
more correlation factors. Similar approaches are taken in determining the
capacity of tie-back anchor systems, in estimating the friction acting on
pipes during micro-tunneling, and in estimating the friction between
backfill soils and sheet piles or other retaining structures.

Why have these various design procedures relied on empiricism and
back-analysis rather than direct measurement of relevant properties? The
answer is simply that until very recently, while recognized as a
significant factor in the strength of interfaces, the technology and
methods to quantitatively evaluate the surface roughness of civil
engineering construction materials at relevant scales was not available.
Fortunately, driven by the need to quantify surface characteristics of
materials in other engineering disciplines, the technology and equipment is
now available. This project seeks to exploit this opportunity by applying
this technology to geotechnical interfaces and thereby providing the basis
to revolutionize how pile foundations and other earth structure systems are
designed and constructed.

This project is to develop and evaluate a multi-friction sleeve attachment
to the cone penetrometer (CPT) to permit direct in situ measurement of the
relationship between interface strength and surface roughness. Recent
research has successfully quantified the relationship between interface
strength and surface roughness in the laboratory. The opportunity now
exists to transfer this knowledge to an in-situ test. Through measurement
of the loads transmitted to multiple friction sleeves of increasing
roughness assembled in series, the quantitative relationship between
interface friction and surface roughness can be measured. This will result
in the ability to directly measure the insitu interface strength, thereby
opening the opportunity to revolutionize the design concepts, materials,
methods and processes used in foundations, retaining structures, and
micro-tunnels.

The proposal outlines a series of tasks ranging from laboratory
experimentation, numerical analysis, calibration chamber testing, to
full-scale field testing to ensure that the design of the proposed
attachment is based on a solid fundamental understanding of the interaction
of the penetrometer with the surrounding soil. It is noted that the
proposed approach is not to alter existing cone penetrometer design but to
add an attachment that offers new capability for site characterization. The
interface friction measurements made with the device can be complemented by
either pressuremeter or dilatometer measurements so that reliable estimates
of lateral stress conditions are available for the pile capacity prediction
procedures to be developed as part of this study.
***